Quantitative Validation and Statistical Error-Assessment of Coupled Computer-Aided Modeling of Forging Sequences of Axixymmetric Parts

This project deals with experimental and computer modeling of metal forging operations such as forging. A significant advantage of a forged part is the enhanced physical strength due to metallurgical grain-flow and orientation. Consequently, a number of computer-aided forging programs predict both the forging load-history and the internal plastic- deformations associated with specific die and billet configurations. However, there appears to be no quantitative validation of these plastic deformations due to a lack of experimental information dealing with quantitative internal plastic-deformations and grain-size distributions associated with accurately known forging-conditions. Furthermore, there appears to be no statistical assessment associated with the variations of the internal deformations due to variance of the forging population. This project addresses some of these issues by both experimental and computational methods.